RESEARCH INITIATION AWARD: Development of New 3D Biomechanical Model for Use in Ergonomics and Rehabilitation

9410302 Kerk This Research Initiation Award involves the application of biomechanical models in the field of ergonomics toward the goal of reducing human pain and suffering, reducing costs associated with work-related accidents and overexertion injuries, and reducing production costs by improving work place design. The specific objectives are to: complete the theoretical development of the three-dimensional, static, biomechanical model combining the comprehensive effects of strength capability, stability, and coefficient of friction, develop the computer software to evaluate the model by mathematical programming methods to deliver numerical solution, perform bench top evaluation of the model, and facilitate industry interaction and classroom evaluation of the model to assure the relevancy of the research. This research has potential utility for any situation in which humans exert forces on an external environment. Potential settings will be found in industry, aiding the disabled, rehabilitating injured workers, and athletic performance. ***